SIFT-Drift Studies of Gas Phase Ion-Molecule Reactions

An investigation of the reactions of a variety of species in the gas phase will be conducted. Reaction rates and product distributions will be analyzed as a function of structure and electronic properties of the reactive species. The proposed work will include studies of reactions between radicals and cations, cation fragmentation processes which proceed by either concerted or non-concerted paths, and processes involving doubly bonded phosphorous. By use of flaming afterglow techniques, the kinetics of the reactions under investigation will be determined by injecting reactive species into flowing streams of transient gas phase molecules which themselves have been selected via the use of a quadrupole mass filter. In addition to yielding critical thermodynamic information about gas phase reactions, the investigation will be instrumental in providing insight into naturally occuring processes in the atmosphere. %%% This grant will provide funding for the continuing studies of gas phase reactions by Dr. C. H. DePuy and Dr. V. M. Bierbaum at the University of Colorado at Boulder. The investigation is designed to yield critical data concerning reactive processes which are fundamental to a large number of important chemical processes. In additional to generating rate and product distribution data, which can be utilized by chemists to predict the occurence of new chemical reactions, this investigation will also have a significant impact upon our general understanding of reactions which take place in the earth's atmosphere: this should provide direction for the development of chemical processes for maintaining the integrity of the atmosphere and insuring a quality environment.